Acquisition of Computer-Assisted Microscopy Imaging System for Cytogenetic Research and Training in Neuroscience and Reproductive Biology

A grant has been awarded to Drs. Lee and Underwood at California State
University Long Beach to acquire an imaging system comprised of a fluorescence
-capable microscope with motorized stage, CCD camera, computer, and software.
This system will provide unbiased stereology capabilities, as well as the ability to
1) visualize immunofluorescent labeled samples; 2) produce 3-dimensional (3-D)
reconstructions; and 3) establish image databases accessible via the internet.
The goal of Dr. Lee's research is to understand the effects of memory
formation and hormones on neurogenesis in the zebra finch hippocampus. The
hippocampus of adult birds and mammals retains the capacity for substantial
plasticity including the birth of new cells (cytogenesis) and neurons
(neurogenesis) in response to a number of environmental influences including
learning and memory formation. Dr. Lee recently found that hippocampal cells
are also born as a result of injury and collect around the damaged site in the
zebra finch brain. Injured brain areas become rich in aromatase as well, an
enzyme that converts testosterone to estrogen. Estrogens, in turn, are known
to promote differentiation and survival of neurons. These intriguing results
are being used to investigate factors influencing cytogenesis and
differentiation of new cells into neurons and glia. The aim then is to exploit
the ability of the avian hippocampus to respond to environmental influences by
training birds on learning tasks, lesioning the hippocampus, injecting them
with BrdU (a mitotic marker), and assessing the patterns of cell proliferation,
migration, and/or differentiation through the use of immunohistochemical
techniques. New BrdU-positive cells will be visualized and counted using the
MicroBrightField StereoInvestigator imaging system; double labeling procedures
will be used to determine whether new cells are neurons or glia.
The goal of Dr. Underwood's research is to understand the relationship
between chromosomal abnormalities, a biased sex ratio, and the evolution of
"excess" males in the madrone butterfly. Dr. Underwood's research led to the
discovery of abnormalities in chromosome pairing during germ cell formation in
the madrone butterfly. One subspecies shows a normal complement of 26
bivalents; however, another subspecies shows extreme variations from cell to
cell within the same individual. The primary sex ratio of the abnormal
subspecies is 75% male while the normal subspecies appears to have a normal sex
ratio of 50% males. Butterflies have chromosomal sex determination.
Spermatogenesis is extremely abnormal with multivalent chromosomal associations
and lagging chromosomes formed during metaphase and anaphase, and the
production of micronuclei associated with sperm nuclei.
NSF funding will also make it possible to digitize samples obtained from a
variety of research projects. This will result in public databases to be used
by interested scientists with access to the internet and thus offers an
unparalleled opportunity to share information both locally and globally.
Individuals from multiple labs will perform procedures remotely thus broadening
the scope of research and increasing the opportunity for publication and
dissemination of results, while minimizing labor and the number of animals.
Beyond the immediate research applications, instructors and their students will
be empowered through accessibility to data previously reserved for only a
select few. Image databases, accessed as classroom exercises, will expose
students to topical and exciting new research as well as train them in the use
of 21st century technology thus advancing science and giving them a competitive
edge.